Postdoctoral Research Fellowships in Microbial Biology for FY 2000

This action funds an NSF Postdoctoral Research Fellowship in Microbial Biology for 2000.

The research and training plan is in the area of Microbial Genetics and is entitled "Role of Gene Control Mechanisms in Microbial Methane Production." The primary goal of this study is to identify and characterize the mechanism for genetic regulatory control of methanogenesis, which has a pivotal role in the global carbon cycle. A combination of physiological and genetic approaches is being used to investigate the control networks that mediate expression of a catabolic gene encoding carbon monoxide dehydrogenase in the methanogen Methanosarcina actevorans.